Third International Marine Biotechnology Conference to be held August 8-12, 1994, at University of Tromso, Tromso, Norway

9408254 Halvorson This grant will provide support for U.S. scientists to attend a five-day International Marine Biotechnology Conference to be held August 8-12, 1994 on the campus of the University of Tromso, in Tromso, Norway. The specific objectives of the International Marine Biotechnology Conference are: (a) to present the latest discoveries and applications of marine science with emphasis on biotechnology; (b) to educate industrial scientists with the advances made in marine science; (c) to bring together colleagues from all over the world so that the science can be evaluated and criticized; (d) to present opportunities for joint ventures and research partnerships by making contacts through scientific discussions and informal gatherings; (e) to put together a volume of extended abstracts so that the science presented at this conference will be available as a reference book. (f) to provide material that will lead to creative new ideas and applications. %%% This grant will provide support for U.S. scientists to attend a five-day International Marine Biotechnology Conference to be held August 8-12, 1994 on the campus of the University of Tromso, in Tromso, Norway. The topics chosen for the conference reflect the great interest among scientists in exploring the nature of biological interactions between organisms living in the very diverse and often extreme habitats of the marine world. Basic research on biological mechanisms and molecular interactions related to a life in aquatic systems has yielded valuable information about fundamental biological principles. Studies on the processes and products of marine organisms have already opened new and sometimes very unexpected applications within many sectors of society, including medicine, production of marine food and chemicals and sequestration of mineral resources. Presently a major focus is on the control of microbial diseases in aquaculture and in aquatic ecosystems. The emerging science of marine bio technology is thus being applied in the management of marine biological resources and in monitoring and remediating the marine environment. The underlying philosophy of this conference to promote rapid advances in the various sectors of marine biotechnology for the benefit of mankind and in harmony with nature. ***